Programming Ink Deposition Dynamically: The New Science of Direct Ink Writing

Direct Ink Writing (DIW) is a class of three-dimensional (3D) printing that builds a 3D object by depositing functional and/or structural liquid materials (ink) onto a substrate in a layer-by-layer approach. This award supports fundamental research to provide new knowledge for control of ink deposition on substrates or previously printed layers. The research will advance DIW technology toward a higher achievable resolution, more flexible ink design, higher print quality, and a much wider choice of substrates. DIW has applications in a number of industries, including health care, electronics, automotive, aerospace and defense, and therefore this research directly impacts economic welfare and national security. Furthermore, the developed knowledge of ink deposition control could be applied to almost any droplet- or liquid filament-based process. 45.6 percent of undergraduate students in the UIC College of Engineering are from groups traditionally underrepresented in STEM. The PIs will work actively to involve underrepresented minority students in workshops, seminars, and mini-symposiums that are created from this project. Research outcomes will be incorporated into three engineering courses at UIC, the Engineering Summer Camp at UIC, and the 3D printing learning modules for Women In Engineering (WIEP) K-12 outreach programs.

Dynamic and localized control of ink wettability on substrates or previously printed layers is pivotal for addressing current tolerance and repeatability challenges and advancing DIW technologies. The objective of this project is to test the hypothesis that wetting properties of leaky dielectric liquid droplets/filaments on substrates change dynamically when an electric field is applied, thus enabling accurate direct writing of inks on a wide range of substrates. The applied electric field is programmed in a pixel-by-pixel and layer-by-layer way, so that it manipulates ink deposition at any location, in any layer, and on any substrate. The research team will perform multiphysics modeling and experiments to understand the ink electrowetting dynamics, design and construct electric mask (e-Mask) generation systems, establish a novel e-Mask assisted DIW system and process, and assess the new DIW system.